Local History by Wireless

This award is made under the innovative technology connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64, which covers K-12 education institutions (including vocational technical schools), public libraries and museums. It provides partial support for two years for a totally wireless system to connect a small museum to the Internet. Wireless also will be used within the museum to connect a laptop equipped with a camera to allow innovative ways for remote users to view the museum displays.